CISE Research Resources: Resources for Software Engineering Research

EIA-0224368
Edward B. Allen
David A. Dampier; Thomas Philip
Mississippi State University

CISE RR: Resources for Software Engineering Research

This proposal from an EPSCoR state, enhancing capabilities for software-engineering research, aims at acquiring a data base server, a configuration management system, and workstations to support the following projects:

1. CAREER: Assessment of Open-Source Software for High-Performance Computing,
2. Using Pathfinder Networks to Model Perceptions of Software Requirements,
3. Automating Steps in Software Evolution, and
4. Integrated Information Sifting for Scientific Instruments.

The first project ascertains the quality of the software using retrospective case studies by building and evaluating models that could have developed during the historical projects or releases. The second provides methods for uncovering divergent perceptions of software requirements by stakeholders and developers, thus giving an early indication of potential requirements issues in light of conceptual differences among groups. The third, creating automated techniques for semantics-based slicing and change-merging that will facilitate the reliable delivery of small increments, devises automated methods for incorporating incremental changes into software systems as they evolve. The last project, producing of imagery, develops an integrated set of algorithms and tools for analysis of scientific-instrument data to support on-line monitoring and process control. The information sifting approach includes artificial neural networks for classification of spectral images, statistical methods for rapid comparison of spectra, rule-based models of thermal imaging, and fuzzy classification using autonomous agents.